RIA: Design and Analysis of a Memory Module that Collects Garbage in Real Time

Automatic garbage collection enhances programmer productivity by eliminating many of the low-level concerns associated with explicit reclamation of dynamic objects, by protecting programmers from having to deal with subtle bugs that result from dangling pointer problems, and by allowing programmers to select simple algorithms that might otherwise be rejected because of the perceived complexity of managing the dynamic creation and destruction of many short-lived objects. The research pursued in this project focuses on: - generalization of an existing real-time garbage collection algorithm to deal effectively with arbitrarily long strings of characters and with arbitrarily long arrays of pointers to other objects. Overlapping substrings and array slices would also be supported. - design and prototype implementation of a CPU-independent memory module that executes the generalized real-time garbage collection algorithm in parallel hardware while application programs run on the host CPU. - analytical and empirical evaluation of software and hardware prototypes to determine worst-case and average performance of particular memory management operations. - development of general techniques to help programmers analyze their real-time programs in order to pılace upper bounds on the programs' memory requirement and on the times required to perform particular memory operations.